Genes for Georgia: Translating Genomic Research into Regional Economic Growth

0125304
Holbrook

This award is to the University of Georgia to support the activity described below for 24 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0179).

Partners
The partners for this award are the University of Georgia, Avigenics Inc., Georgia Cotton Commission, Georgia Research Alliance, OneGeorgia Authority.

Proposed Activities
The effort will focus on creating gene encyclopedias and bioinfomatic infrastructure needed to identify diversity of potential value to bio-based industries.

Proposed Innovation
Leveraging genomic technologies in this manner is expected to spawn an unprecedented era of innovation in bio-based industries, nurturing the development of new value-added products and intrinsic genetic solutions to agricultural challenges, in a manner that is publicly acceptable and compatible with responsible stewardship of the ecosystem.

Potential Economic Impact
Outcomes from this effort will include: (1) new ventures to expand and diversify regional bio-based industry opportunities, (2) empowering small businesses to compete with multinationals by partnering with public researchers as a virtual R&D resource, (3) strengthening the national science infrastructure by adding enabling tools for new plants and animals, (4) partnering with existing outreach networks to provide regional professionals with the training needed to exploit these tools, while preserving the links of the individuals to their home regions.

Potential Societal Impact
Young professionals will receive the education and jobs needed to provide regional economic wellbeing and remain in the region avoiding a regional "brain drain".